Learning Models

Drs. Feinman and Abramson are continuing and expanding their elegant studies of the biological processes underlying learning and memory. Their approach is to use an animal with a relatively simple nervous system, and, to study the simplest types of associative learning. The choice of learning model is the eye withdrawal reflex of the green crab: Eyes are drawn back into the shell in response to almost all strong stimuli. Like protective reflexes in higher organisms, it can be modified by experience. Even these animals with primitive nervous systems can be taught to respond to a previously neutral stimulus by associating it with a strong stimulus that elicits the response. This association of stimuli, or Pavlovian conditioning, is one of the most fundamental processes in animal learning. The relatively simple organization of the nervous system makes it possible to investigate the role of neurotransmitters (chemical communicators between nerve cells) in terms of their relation to behavior and the organization of the nervous system. The similarities an differences between learning in simple invertebrates and in higher animals can yield important insights into the molecular, cellular and organismal processes which underlie learning.